The Impact of Black Political Participation in the Urban South

This research focuses on black politics and the impact of Black political participation. The research describes and analyzes the increased Black political participation which has occurred since 1960 in three selected localities in the Urban South (Atlanta, Birmingham and New Orleans) and assess whether the increased Black political participation has had an impact on the government allocation of benefits to Blacks in these localities. The time frame of the study will be from 1960 to 1990. Pluralist theory will be used as the theoretical frame work for the study. Three independent variable will be examined; demographic political participation, demographic cluster, and electoral structure. Data for the study will be obtained from a variety of sources. For the independent variable, data on the demographic cluster will be obtained from census data and from The Municipal Year Book. Data on the political participation variables and electoral structure variables will be obtained from the registrar's office in the three cities. Data on the dependent variables will be obtained from the mayor's office and other local sources in the three cities.